P. and B. Bok and R. Lines Special Scholarship Awards to High School Students

AST-0086324
Marvel

Three special awards for outstanding astronomical research projects by high school students are awarded annually at the Intel International Science and Engineering Fair (ISEF).

The awards are:

The Priscilla and Bart Bok awards (one award and one honorable mention) are awarded jointly by the American Astronomical Society (AAS) and the Astronomical Society of the Pacific (ASP).

The Richard D. Lines Special Award in Astronomy is awarded by the International Amateur-Professional Photoelectric Photometry (IAPPP).

Information on the details of the awards may be found at "http://www.aas.org/education/bok html". The winners are the subjects of a special article in the AAS newsletter each year.

In the year 2000, these honorary awards will be supplemented with a financial award, from the National Science Foundation, to be used by the recipients to further their education. A modest sum will be awarded to their present school for use in enhancing science education.

This award is funded by the Division of Astronomical Sciences.
***